ITR: Collaborative Augmentation of Knowledge Production

This project studies Social Knowledge Enhancement Cycles, in which the intellectual efforts of many people lead to the valuable accumulation of new knowledge. For example, people write books, which go into libraries,
are found and read by other people, some of whom write more books, which go into libraries, etc. Similarly, in "recommender systems" people see movies, rate them using software that combines those ratings with those of other people to make recommendations of other movies, which people see and rate, etc. These cycles, though different, both leverage communal effort to produce and accumulate various kinds of knowledge in
society. To study this whole class of cycles, this research performs an extensive "design space analysis", identifying common structure, typical variations, and underlying dynamics. In parallel, the research develops two new concrete examples: one to share sensemaking efforts of people gathering information on the web, another to facilitate reuse of intellectual work done in online discussion groups. The ultimate goal is
to enhance the ubiquitous information gathering, sensemaking, distillation, dissemination and creation activities important for research, education, knowledgeable consumer behavior, an informed citizenry, and enlightened public policy.